Special Minority Award (Physics)

This Special Minority Award provides a year of support for Jennifer D. Frank, a graduate student at the University of Arizona. The award will allow Ms. Frank to finish her course work expeditiously and reach the research participation phase sooner. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.